Travel Support For Junior Researchers Attending The Workshop On Frontiers Of Extreme Computing; October 23-27, 2005; Santa Cruz, CA

PROPOSAL: 0553518
INSTITUTION: Florida State University
PI: Michael Frank
TITLE: Travel Support for Junior Researchers Attending the Workshop on Frontiers of Extreme Computing

A workshop on "The Frontiers of Extreme Computing: Transitioning Moore's Law to the Next Generation" (www.zettaflops.org) took place October 23- 27 2005 in Santa Cruz, California,. This workshop is an interdisciplinary meeting which aims to call attention to a range of important but not widely-known potential solutions for moving beyond near-term barriers to substantial further improvements in computer performance. The workshop identified important supercomputing applications, matched these against several technologies and programming methods, and determined the suitability of each application at several scale levels. The resulting matrix is a component of a roadmap for further supercomputer development. This award provided travel support for junior researchers.

The results of the workshop will be disseminated widely over the Internet.